Did Eastern Mexico and the Eastern Margin of Laurentia Collide During the Grenvillian Orogeny

9909459
Cameron

The Grenvillian Orogeny that affected eastern Canada and the eastern and southern seaboard of the U.S. at about 1.0 Ga is normally interpreted to be a continent-continent collision between North America and a large continental mass to the southeast. However considerable controversy exists about whether South America (Amazonia), Africa, Mexico or some other craton was involved. This project will test and employ a relatively new dating technique to attempt to determine if Mexico is a viable candidate for the continental mass that collided with the southern part of the Orogen. Results will help clarify precambrian plate positions and a successful test of the new dating method is expected to be applicable elsewhere.